US-Japan Seminar on Stability of Steel Structures Under Cyclic Loading and US-Taiwan Workshop on Analysis and Designof Structures with Enhanced Damping Capacity

This project provides international travel support for the principal investigator to conduct cooperative studies in Japan and Taiwan on a short-term scientific visit basis. The investigator will: (1) work with Tokyo University researchers on seismic stability problems as a follow-up to a previously held joint seminar on the subject, and (2) engage in preliminary study on the enhancement of damping capabilities in earthquake- resistant structures with Taiwan investigators. Both tasks are combined to be carried out in a single trip to the Far East during the Summer of 1992. The studies will improve engineering understanding of two important subjects, i.e., seismic stability and damping enhancement in civil infrastructure systems, and are expected to develop program framework for future cooperative seminars on these subjects.